C4L Calculus Computers, Calculators and Collaborative Learning

This collaborative learning project is providing students, especially those from minority groups, a better chance to achieve success in calculus. These students are working in informal study groups with the assistance of specially trained tutors.